Partial Support for the ACM Fifth Conference on Computer, Freedom, and Privacy: Burlingame, CA

9509983 Miller This project organizes and presents an intensive multidisciplinary survey conference on the implications for privacy and freedom of interaction of computers, computer databanks, and computer networks. This conference will bring together individuals from academia, government and industry to focus on information technology issues in the area of legislation, regulation, security, law enforcement, civil liberties, freedom and privacy. The award provides partial support for speaker travel expenses, publication of materials and audio visual equipment rental for this conference.